Carbon-Carbon Bond-Forming and Cleaving Stoichiometric and Catalytic Organometallic Reactions

The foci of this research are threefold. First, the development of synthetic methodology using the Zr-catalyzed enantioselective carboalumination of alkenes will be carried out. Second, the chemistry of "ate" complexes of Zr, Ti and other early transition metals, especially in the area of 1,2-migratory insertion reactions will be probed. Third, Zr-catalyzed carbometallation and Pd-catalyzed cross coupling reactions will be used for the synthesis of carotenoids and other polyconjugated natural products.

With this renewal award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Ei-ichi Negishi of the Department of Chemistry at Purdue University. Professor Negishi will focus his work on developing new synthetic methodology using organotransition metal compounds of early transition metals, especially zirconium and titanium. The methodology, in turn, will be used to prepare natural products having interesting biological properties. The work has broader impacts for the pharmaceutical industry and for materials science. Further, the project is an excellent venue for the training of graduate students.